IUCRC Phase I Iowa State University: Center for Soil Technologies (SoilTech)

Healthy soils are needed to sustain life, to grow food, to provide shelter, to provide resilient infrastructure, and to enable mobility, but there is presently a lack of knowledge about many key aspects of soil and its dynamics such as variations in the moisture and organic matter content, and how these variations affect soil health and stability. The Center for Soil Technologies (SoilTech) is a partnership among the University of Southern California, Iowa State University, the University of Connecticut, and the University of Washington to address this knowledge gap with a mission to support industries related to agriculture, defense, energy, and environment. By convening researchers across the nation with complementary areas of expertise, and by recruiting Industry Advisory Board members from a broad range of industry, foundation, and government organizations, SoilTech will make crucial progress in understanding soil dynamics. SoilTech will serve as a first-of-its-kind hub for technical exchange and research among these organizations, providing inter-disciplinary knowledge synthesis and broad applications of its research. SoilTech’s participating sites have strong education and outreach programs. These programs will train the next generation of workforce in soil measurement and monitoring practices that will broadly benefit society.

The research teams at the SoilTech Center are poised to make significant advances in the understanding of dynamic processes in soils through four research themes - Soil Sensors and Sensor Networks; Soil Modeling and Data Analytics; Soil Carbon Capture and Accounting; and Soil Health and Sustainability – SoilTech-enabled research will meet a number of as yet unaddressed needs in several industry sectors. SoilTech will provide the underlying research necessary to develop new, more efficient, and more sustainable ways of understanding soil properties and managing soils and natural resources. Iowa State University contributions will focus on resilient in-ground sensors, space-based remote sensing, carbon accounting methodology standardization, and developing deployable soil health initiatives such as contaminant mitigation and support for precision agriculture, leveraging multiple world-class facilities for support. These include BioCentury Research Farm, Bioeconomy Institute, Plant Sciences Institute, Iowa Nutrient Research Center, Center for Agricultural and Rural Development, Leopold Center for Sustainable Agriculture, and Artificial Intelligence Institute for Resilient Agriculture. Our workforce development plan includes the creation of internship, training modules and experiential learning modules.